AF: Medium: New Directions in Computational Complexity

Studies in computational complexity in three directions are proposed:
holographic algorithms, Darwinian evolution, and multicore algorithms.
In the first of these areas, holographic reductions have been shown to
be a fruitful source of new efficient algorithms for certain problems,
and evidence of intractability for othrs. In this research the aim is to
arrive at a better understanding of the possibilities and limitations of
holographic algorithms, by exploring ways in which specific currently
known limitations of this class of methods can be circumvented. For
evolution the goal is to understand better what classes of mechanisms
can evolve through the Darwinian processes of variation and selection
when only feasible resources in terms of population sizes and numbers of
generations are available. In the area of multi-core algorithms, a
methodology will be developed for expressing and analyzing parallel
algorithms that are optimal for a wide range of hardware performance
parameters. Such algorithms would make possible portable software, that
is aware of the parameters of the machine on which it executes, and can
run efficiently on all such machines.

The work on multi-core algorithms aims to have the practical goal of
increasing the effective exploitation of multi-core computers as these
become more pervasive. The work on evolution will highlight the fact
that the question of how complex mechanisms could have evolved within
the resources available, is a question that is resolvable by the methods
of computational complexity, and aims to provide more precise
mathematical specifications of what the Darwinian process can achieve.
The work on holographic algorithms aims to make progress in our
understanding of what are widely regarded as the most fundamental
questions regarding the power of practical computation.